Presidential Young Investigator Award: Dynamic MicrophysicalBehavior of Multiphase Systems

This award supports research in the area of interaction between flight vehicles and the atmospheric environment. This research area involves aerodynamic degradation of aircraft due to environment effects such as rain and icing and contamination due to insect debris. The interdisciplinary research includes meterology, physics, aerodynamics, and a knowledge of flight operations. Early research has led to the development of an ultrasonic sensor to measure ice thickness. Research is planned on qualifying cloud-droplet size distribution and its effect on icing and on aerodynamic degradation due to surface wetting of wing surfaces.